Community-Based Documentation of Ice Seals and Walrus in the Bering Strait Region

The ice seal and walrus populations of the Bering Sea, as well as the subsistence users who utilize them, currently face many challenges. These include loss of sea ice and the expansion of development, fisheries activities, and marine shipping in the northern Bering Sea. Concern over the future of these species is growing, but existing science cannot conclusively predict how these factors will affect ice seals and walrus or the communities that depend on them. Local knowledge of the ecology and biogeography of these species, in addition to local use patterns, may help communities and policy makers understand current and future impacts of these environmental and anthropogenic changes.

This is a community based research project through Kawerak Inc., the Alaska Native regional non-profit corporation. As part of this project, Kawerak researchers will be working with local community members to implement ethnographic and GIS spatial mapping methods in order to increase our understanding of Bering Strait region Iñupiat, Central Yup'ik, and St. Lawrence Island Yupik relationships with two important subsistence resources, ice seals and walrus whose habitat is being affected by environmental change. Through mapping spatial and temporal knowledge of ice seal and walrus habitat and ecology and subsistence use area, documenting the cultural importance of hunting ice seals and walrus, as well as the challenges to subsistence ice seal and walrus hunting (as seen by hunters), the project will contribute to an increased understanding of the complexity of social-environmental dynamics in the Arctic. The project will give a voice to local analyses and solutions of these problems which will in turn inform wildlife managers and policy makers. In addition, the project will contribute to an Arctic Atlas of Important Ecological Areas (IEAs) being developed by the international conservation group Oceana, which will in turn be a tool for the region's communities.